Evolution of Behavior and Associated Structural and Physiological Traits in the Leafhopper Genus Cuerna (Hemiptera, Cicadellidae)

Loss of ancestral traits and trait complexes is a pervasive aspect
of the evolutionary process, but its causes, mechanisms, consequences, and
the possibility of restoration of the lost traits are still poorly
understood. The current project aims to explore the patterns of repeated
decay and loss of a stereotyped maternal behavior in the North American
leafhopper genus Cuerna as a model of the regressive evolution of a complex
biological function at the species level. In some of the 31 known species
of the genus, females display an ancestral egg-powdering behavior, coating
the egg nests with a layer of specialized Malpighian tubule products and
displaying a suite of corresponding physiological and structural
modifications, while in other species no such behavior is observed.
Preliminary phylogenetic analyses suggested that egg-powdering has been
lost or lost-and-restored within the genus multiple times. In the three
years of the project the investigators will collect detailed comparative
data on the egg-laying behavior and associated specializations of the
external morphology and the Malpighian tubules for every species of Cuerna.
Then, they will analyze these in the context of a detailed DNA-based
phylogeny of the genus to address the following questions: Did the changes
of particular traits proceed as quantum leaps or gradually? Do
morphological, behavioral, and physiological traits display similar
evolutionary plasticity? Did they change in a certain order? Did any
restorations of lost egg-powdering occur in the evolution of Cuerna? What
were the most likely causes of the losses? The study will also result in a
taxonomic revision of the genus, which currently contains a number of
poorly defined species.

The study will contribute to management of economically important
species of Cuerna by providing identification aids, as well as behavioral
and physiological data for improved integrated pest management. An
interactive key to species of Cuerna, complete with bionomical and
distribution data, will be served on-line. The project will also provide
training for a graduate student in the systematics, molecular
phylogenetics, and evolutionary biology of insects.